U.S. National Commission for Mathematics Instruction -- A Conference Grant

The U.S. National Commission for Mathematics Instruction (USNC-MI) of the National Academy of Sciences requests a conference grant to support the Commission on cooperative research and educational activities across international boundaries. The activities include workshops, conferences and symposia designed to further develop the field of mathematics instruction both nationally and internationally. Specifically, the grant will support (1) a workshop on Chinese and U.S. teacher preparation; (2) a workshop on international comparative assessments in mathematics; and (3) a workshop on challenges in non-university Tertiary Mathematics Education.